Workshop on Advanced Applications for Carbon Materials

This award provides funds for international travel by eight American scientists and engineers, and four students to Cheju Island, Korea to participate in an international workshop on Advanced Applications for Carbon Materials. The workshop will be co-organized by the Engineering Research Center (ERC) for Advanced Engineering Fibers and Films at Clemson University and Chungnam University, Korea. The expenses of Korean participation and costs for local arrangements will be borne by the Korea Science and Engineering Foundation (KOSEF). The conference program will include sessions on novel applications and processing techniques, carbon materials for environmental applications, carbon nanomaterials, carbon materials for storage applications, and carbon/carbon materials.